Alegbra Symposium -- A Conference Grant

9614977 Williams The National Council of Teachers of Mathematics will organize a national symposium on the role and nature of algebra in the K-14 curriculum. The symposium will bring together 250 representatives from all segments of the mathematics community to consider issues surrounding the content and teaching of school algebra. Goals of the symposium are: to promote an informed dialogue on issues concerning the K-14 algebra curriculum; to provide examples of students' algebraic thinking, synthesize research, and examine impact the reality of algebra in the school curriculum; to provide a forum for elementary, middle, high school and post-secondary curriculum projects to share their interpretations of algebra; and to prepare participants to replicate similar symposia on a smaller scale in their local regions. The Algebra Symposium is funded by NSF at $77,965 with cost-sharing of at least $20,000.